Summer Course in Polymer Chemistry for College Faculty

A comprehensive course in polymer chemistry, comprising lecture, discussion, laboratory, and field trips is designed for college faculty who wish to incorporate material on polymers into lower division chemistry courses or to teach upper division courses in polymer chemistry. The pedagogical approach aims to overcome much of the reluctance to consider polymer chemistry as an important aspect of undergraduate training in chemistry. The course includes polymer synthesis, modification, and molecular level characterization and physical properties of macromolecules. Biopolymers, especially lesser known ones such as the polyesters produced by some bacteria, are included. Polymer recycling is discussed. Contemporary topics in research in polymer chemistry such as polymers for microelectronics, biomaterials, and electronically conducting polymers also is included. Visits to the National Plastics Museum in Leominster, MA, Mypro, Inc., in Clinton, MA, and the General Electric Research and Development center in Schenectady, NY, are also planned.